Parallel Processing in the Undergraduate Curriculum

This is a two-week workshop for faculty with limited access to parallel computers. Participants will learn to integrate parallel processing into their courses. Tools include transputers, simulators, and a network connection to a research center. Topics include parallel architectures, programming parallel computers, integrating parallel processing into the computer science curriculum, and methods for teaching parallel processing to undergraduates. The workshop includes lectures and laboratory sessions focusing on writing parallel programs and developing curriculum materials.***//